SGER: GIS Applications in Tsunami Hazard Mitigation

ABSTRACT: CMS-9726240, Philip Liu, Cornell U. The occurrence of a tsunami cannot be accurately predicted; instead, it is necessary to focus on reducing the damage through such measures as establishing Tsunami Warning Systems, and by implementing sound coastal zone management policies. Modern geographical information system (GIS) technology provides a powerful tool for managing the data, for interfacing with external analysis programs, and for presenting the results in the manner useful for disaster planning, hazard mitigation, and rehabilitation strategy comparison. The objective of this research project is to develop a preliminary tool to assist engineers and planners in tsunami hazard mitigation by integrating GIS with the numerical models for tsunami propagation and runup, thereby permitting engineers and planners to evaluate the data to be used in the numerical model; to visualize the results from modeling exercises; and to determine potential flooding areas, evacuation routes and the potential damage to structures and utilities in the affected area. The project focuses on establishing the framework of a GIS for tsunami hazard mitigation, using Hilo, Hawaii as the specific site for the preliminary development. +=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+=+= + Clifford J. Astill Ph:703-306-1362 Fax:703-306-0291 [email] Nat'l Science Fdn 4201 Wilson Blvd., Rm545 Arlington, VA 22230